MRI: Acquisition of High Performance Clusters for Effective Parallel Computing in Computational Science Research and Education

EIA-9977030
Voigt, Robert G.
Simha, Rahul
College of William & Mary

MRI: Acquisition of High Performance Clusters for Effective Parallel Computing in Computational Science Research and Education

The PIs request funding to purchase and operate a high speed network of computer systems that will complement state investment in computational science at College of William and Mary and help drive significant, related research and educational activities. The equipment will be used as the centerpiece of the common research focus: the effective use of parallel systems for scientific computation. The PIs seek hardware that balances the many needs of their activities. The selected architecture consists of three interconnected subsystems each of which is a cluster of workstations or PC's. Two of these are 16-processor and 32-procesor Pentium-based Beowulf-like systems built with different interconnection networks, and the third is a combination of four 4-processor SUN multiprocessors.